Selection of Lengthscales in Fe-based Nanochessboards to Enhance Exchange-Coupled Ferromagnetism

Non-Technical Abstract

Permanent magnets are key components in a diverse range of technologies, most notably
in electric motors and electric generators. They are also critical to magnetic recording,
which still forms the foundation of large-scale data storage devices. To improve the
performance of magnets, new materials, new strategies, and new science are needed. One
approach towards improving magnetic behavior is called exchange coupling, in which
two different magnetic materials interact at the quantum level to create new properties
not available from either material by itself. For this to be effective, however, requires that
the materials be intertwined at the nanoscale, called a nanocomposite material. Most
research on nanocomposite materials has explored two extremes. Extreme simplicity is
provided by thin films, in which the two materials are simply thin, planar layers on top of
one another. Extreme complexity is provided by bulk nanocomposites, where tiny grains
with irregular shapes, sizes and interfaces, are mutually intertwined. This project
investigates a very special nanocomposite, called the nanochessboard, where a regular
tiling of the two materials is achieved by self-assembly, in specific combinations of
materials, simply by heating them. The resulting structure looks much like a chessboard,
but where the individual tiles are nano-sized. The Intellectual Merit of this study
emphasizes varying the materials combinations in order to illuminate how the nature of
the materials affects both their self-assembly into nanochessboards, and their ability to
exchange couple. In turn, this will provide the Broader Impacts of the study - the
important new understanding of the behaviors that can be used to define new strategies
for creating high-performance exchange-coupled magnets.

Technical Abstract

This project will select and compete lengthscales, structural vs. magnetic, using advanced
processing techniques to create refined nanochessboards in the Fe-Pd and Fe-Pt systems,
in order to better understand, control, and enhance exchange-coupled ferromagnetism.
These binary systems contain eutectoids of the form A1-- L10+L12 that result in
chessboards by pseudo-spinodal decomposition, if processing conditions are carefully
controlled. The Intellectual Merit is framed by the specific choice of alloys to be used
here, which dictates the uniaxial magnetocrystalline anisotropy associated with the L10
phase, which, in turn, selects the critical lengthscale for exchange coupling. Chessboards
are produced by cooling continuously through the eutectoid, but to gain additional control
over the periodicity, thermomechanical processing and cyclic annealing will be
investigated. The degree of exchange coupling will be interrogated using First Order
Reversal Curve analysis, which excels at revealing how magnetic phases interact. In
addition to the growth of chessboards from an initially polycrystalline A1 starting
material, monocrystalline A1 will also be grown, and then annealed under magnetic fields
or biaxial strain, to create a single-alignment-variant chessboard. This will enable better
understanding of the magnetization reversal mechanisms, as well as the chessboard
transformation itself. Real-time x-ray diffraction will be employed during chessboard
formation to better elucidate the kinetics and progression of the transformation. The
Broader Impacts of success in the proposed research would be the contribution to our
understanding of exchange-coupled ferromagnetism in bulk nanocomposite magnets, not
only including hierarchical lengthscales, but the role of phase morphology, interfaces and
strain. Improving permanent magnets is of ongoing major significance with regard to
increasing the efficiency of electric motors.